UNCA Workstation Workshop

9353973 Brock The UNCA Workstation Workshop is a two-week introduction to the use of workstations in science, engineering, and mathematics education. Each summer two workshops are held on the UNCA campus. Participants addend one workshop. The workshops are designed for faculty in smaller departments who are starting to use workstations in their teaching and must provide much of their own computer support. The goal of the workshop is to show participants how to effectively utilize a workstation connected to the NSFnet. In particular, participants learn how to use Unix file utilities; write simple programs and command procedures; navigate the Internet; install programs obtained over the Internet; solve classroom problems using symbolic computation; assemble a reliable local area network; and manage a small workstation laboratory. The workshop is taught in a networked workstation laboratory in which each student has his/her own workstation or X-terminal. Teaching is highly interactive and frequently alternates between lecture and lab. ***